CT: Well-Typed Trustworthy Computing in the Presence of Transient Faults

David Walker
Princeton University
0627650
Panel: 060970
Well-typed trustworthy computing in the presence of transient faults

Abstract

In recent decades, microprocessor performance has been increasing
exponentially, due in large part to smaller and faster transistors
enabled by improved fabrication technology. While such transistors
yield performance enhancements, their lower threshold voltages and
tighter noise margins make them less reliable, rendering processors
that use them more susceptible to transient faults caused by energetic
particles striking the chip. Such faults can corrupt computations,
crash computers, and cause heavy economic damages. Indeed,
Sun Microsystems, Cypress Semiconductor and Hewlett-Packard
have all recently acknowledged massive failures at client sites
due to transient faults.

This project addresses several basic scientific questions: How does one
build software systems that operate on faulty hardware, yet provide
ironclad reliability guarantees? For what fault models can these
guarantees be provided? Can one prove that a given implementation does
indeed tolerate all faults described by the model? Driven in part by
the answers to these scientific questions, this project will produce a
trustworthy, flexible and efficient computing platform that tolerates
transient faults. The multidisciplinary project team will do this by
developing: (1) programming language-level reliability specifications so
consumers can dictate the level of reliability they need, (2)
reliability-preserving compilation and optimization techniques to
improve the performance of reliable code but ensure correctness (3)
automatic, machine-level verifiers so compiler-generated code can be
proven reliable, (4) new software-modulated fault tolerance techniques
at the hardware/software boundary to implement the reliability
specifications, and finally (5) microarchitectural optimizations that
explore trade-offs between reliability, performance, power, and cost.